Neutrino Phenomenology in the Multimessenger Landscape

This project investigates some of the most important questions in modern astrophysics, including how stars explode, how black holes form, and how nature produces the highest-energy particles in the universe. The research focuses on neutrinos, nearly massless particles that travel across the cosmos and escape from stellar regions hidden from ordinary telescopes. Because of this unique property, neutrinos provide direct information about processes occurring deep inside stars and other extreme cosmic environments. Recent observations of neutrinos, together with gravitational waves and electromagnetic radiation, have created new opportunities to study the universe through multiple cosmic messengers. This project develops the theoretical framework needed to interpret these observations and connect them to fundamental questions in physics and astronomy. The project also supports the training of students and early-career researchers in interdisciplinary science that combines astrophysics, particle and nuclear physics, and advanced computational methods.

The research examines three interconnected topics. The first is the diffuse supernova neutrino background, a faint flux of neutrinos produced by all stellar explosions throughout cosmic history. Artificial-intelligence-assisted methods are used to organize and analyze large collections of theoretical predictions, identify common patterns and uncertainties, and improve the interpretation of future observations. The second topic explores how astronomical observations can test the role of neutrinos in stellar evolution and reveal possible neutrino properties beyond current theories of particle physics. The third investigates high-energy neutrinos from black-hole-powered flares and their connection to ultra-high-energy cosmic rays. The work combines theoretical modeling, statistical analysis, observational data, and numerical simulations to advance the understanding of the universe and the physical laws that govern it.